Presidential Young Investigator Award

The main theme of Professor Miller's research is to understand the primary processes involved in electron transport and energy transport in condensed media. Currently, his group is investigating the dynamics of interfacial electron transfer at a single crystal liquid interface and the subsequent effect of the charge transfer on the solution structure. The time resolved dynamics of this process are intimately related to the mechanism for the electron transfer step, a detailed understanding of which is important both for its fundamental nature and its application in surface chemistry. Interfacial electron transfer occurs on a picosecond timescale (10-12 sec) over spatial dimensions of only a few angstroms. In order to study this phenomenon, they are taking advantage of recent developments in picosecond laser spectroscopy and semiconductor technology. With the advent of efficient semiconductor liquid junction photovoltaics, it is now possible to optically trigger the interfacial electron transfer process with high quantum yield. Ultrasensitive techniques such as picosecond transient grating or electro-optic sampling are being used to selectively study, in-situ, the electron transfer dynamics. Studies in the future will involve the use of recently-developed quantum well semiconductor liquid junction devices that provide monoenergetic electrons to study exclusively the phenomena of outer sphere (solvent) or inner sphere (intramolecular) repolarization that accompanies electron transfer at a liquid interface. The ultimate goal is to provide a detailed study of interfacial electron transfer dynamics which will serve as a valuable testing ground for microscopic models of electron transfer. Concurrently, Professor Miller is interested in how excess energy is repartitioned during an exothermic reaction in the solution phase. This interest is intimately linked to his optical studies of interfacial electron transfer which involves dissipation of 1 eV excess energy on an extremely fast timescale. Vibrational energy relaxation pathways to the solvent lattice are very different for different molecular systems. These differences are only now beginning to be understood. New approaches to this problem involve the use of picosecond transient thermal grating formation and Antistokes Raman studies of vibrationally highly excited molecules.